Theoretical Physics Joins the SMALL Project

The mathematics and physics departments at Williams College are planning to offer a REU program in theoretical physics: one on quantum information theory and one on the structure of quasicrystals. Six physics majors will participate in the program. The project will have a strong interdisciplinary focus: each physics student, in addition to joining one of the physics groups, will also participate in a group offered by the mathematics department, and mathematics students will be included in the physics groups. At least two of the six physics students will come from other campuses.